Four Films on Language

The evolution of language, perhaps two hundred thousand years ago, led to our ability to think abstractly, invent logic, store and exchange ideas and to create culture. What language is, how it works and how it distinguishes us from others is the subject of a four part public television series produced by Equinox Films, Inc., New York, N.Y. To examine language, the series will be filmed in laboratories and universities throughout the United States and on the streetcorners to capture the everyday life and language of Americans. Additionally, parts of the film will be shot in Japan, a sophisticated culture with a completely different language type from ours and in North Central Australia and Papua, New Guinea, where two exotic languages of special interest are spoken. Language is so taken for granted that most of us do not question its nature. Most educated people are unaware even of the revolution that took place in the study of language about 30 years ago. The intriguing interplay between language as a grammatical system and, conversely, as a living changing part of human expression is a complicated and fascinating journey. Exploring the development of language is a challenging project and one that has been imaginatively conceived and developed. The P.I. is highly respected with a number of credits and awards in television production. The co-P.I. is a noted linguist and scholar. The list of linguistic experts who are advisors to the project represents some of the top scholars in the field. All reviewers were extremely enthusiastic about the series and recommended funding. An award of $400,000 with $200,000 in FY'87 and $200,000 in FY'88 is recommended.